US-France Cooperative Research (INRIA): Algorithms for Large-Scale Constrained Optimization

This three-year award supports ongoing U.S-France collaboration in computer science between Jorge Nocedal of Northwestern University and Jean Charles Gilbert of INRIA (The French National Institute for Research in Computer Science and Applied Mathematics). The investigators worked previously on algorithms for unconstrained optimization as applied to assimilation problems in meteorology. They propose to extend their research to solving large-scale constrained optimization problems involving a large number of variables. The objective is to develop faster and more flexible algorithms and software than is currently available. The investigators selected an important nonlinear problem with an arbitrarily large number of variables - the optimization of the trajectory of a space shuttle as it re-enters the atmosphere. They will apply sequential quadratic programming methods to this problem. The proposal takes advantage of complementary expertise. The U.S. investigator brings to this collaboration extensive experience in the development of software for large scale optimization. This is complemented by the French investigator's expertise in solutions of optimal control problems and recent studies of control of the space shuttle. The project may lead to practical applications, but will advance the use of algorithms and software which may useful in engineering and scientific problems with large numbers of variables.